Galaxy Interactions and Mergers in a Cosmological Context

AST 98-70151 Matthias Steinmetz The PI is studying galaxy interactions and galaxy mergers. Galaxy interactions and mergers can induce radical changes in the appearance of galaxies, and also may be the defining events for the star formation history in those galaxies. The PI is using the hardware tool called GRAPE to run n-body simulations of interactions and mergers. These simulations address (1) What is the most likely dynamical pre-history for ellipticals? In particular, which fraction of them have formed from major mergers? And (2) What are the cumulative effects of tidal interactions and minor mergers for a typical disk galaxy? That is, what are the observable consequences of 'field harassment'? Several factors have come together that promise significant progress in answering these questions. There are numerical, high-resolution simulations of large scale structure that provide sensible initial conditions for galaxy merger. There are definite predictions for the mass profile of the dark and the luminous matter. Ultra-high resolutions simulations using GRAPE hardware make merger simulation surveys now feasible that involve a million particles each. With new modeling techniques the PI is attempting to constrain the orbital anisotropies in elliptical galaxies. The result of the project will be a set of simulated interaction histories for an ensemble of elliptical and spiral galaxies suitable for comparing with observations. ***